Predicting Liquefaction Potential of Insitu Sand Deposits During Earthquakes - Continuation

The investigators have designed and constructed an innovative cyclic shear testing device and developed a new approach to obtain undisturbed soil samples for dynamic testing. This project will apply these developments to assess ;itin situ;ro factors such as prestrain, preshaking, soil fabric, and aging of soils to assess the liquefaction potential of sand deposits. The specific investigations to be completed under this project will include: upgrading the cyclic shear test apparatus and performing laboratory and ;itin situ;ro tests to assess the effect of preshaking, prestrain, aging, and fabric on the dynamic response of sands and developing an integrated and verified methodology using the laboratory and field test data to assess the liquefaction potential in at least three selected field sites in California where data on soil parameters have been extensively recorded by the USGS, CDMG, and NSF programs.